International Children's Digital Library Conference Stakeholder Meetings; January-June 2002; Washington, DC

The International Children's Digital Library requests funds for a series of stakeholder
meetings. The purpose of the meetings is to explore and develop strategies for implementing a
comprehensive digital library of children's literature. The Children's Library is dedicated to
providing worldwide digital access to children's literature. The meetings will be held in conjunction with The Library of Congress' Special Collection Division. There will be six meetings focusing on specific interests: writers, librarians, publishers, children's advocates, technologists, and a summary meeting.
The meetings will be held between January and June 2002 at The Library of Congress
in Washington D.C.